Presidential Young Investigator Award

This research is directed towards a better understanding of corrosion behavior in high technology materials. Emphasis is on metal-matrix composites, which can possess extraordinary mechanical properties from a combination of extremely strong particles or fibers in a ductile or brittle metal matrix. Corrosion properties of these materials are not well known, but it is reasonable to expect galvanic corrosion to occur between the dissimilar constituents and localized corrosion to be enhanced by reaction products formed at the reinforcement/matrix interface. This research is devoted to identification of corrosion mechanisms in such materials and exploration of remedies.